Arithmetic and Analysis on Locally Symmetric Spaces and Applications

(mathematical)
This proposal is concerned with the analytic theory
of automorphic forms. Specifically the study of the size
of a general automorphic L-function on the critical line
and the size of an eigenfunction on an arithmetic locally symmetric
space .In both cases the main goal is to establish a subconvex
estimate . In the first case the sharpest form of such an estimate
would follow from the Grand Riemann Hypothesis .However many of the
desired applications of such estimates only require subconvexity.
The applications are varied ,one such being the recent subconvex
estimate by Cogdell,Piatetsky-Shapiro and the proposer which allows
for the resolution of Hilbert's 11th problem on the representation
of integers by quadratic forms in a number field.Other applications
are to problems in mathematical physics ,specifically the behavior
of quantum states in quantizations of classically chaotic systems. The
second problem of the size of an eigenfunction on such locally
symmetric spaces is closely associated with the first and the proposal is
concerned with understanding this more difficult problem.It constitutes a
generalization of the Ramanujan conjectures.

(general):
The proposal is concerned with the study of special types of geometric
spaces which are defined via arithmetic and number theoretic
constructions. This has been an active area of investigation for the last
60 or so years ,primarily since it carries some of the most powerful tools
that we know in number theory (to diophantine problems
as well as ones associated with prime numbers). Specifically the
seemingly technical issues that are being investigated have applications
to resolve some simple well known problems in number theory. One such is
one of Hilbert's problems from 1900 concerning which numbers are sums of
3 integer squares in an extention of the ordinary whole numbers to
integers in a number field. Other applications of this theory are perhaps
less traditional and are to Mathematical Physics,specifically Quantum
Chaos. These spaces provide one of the few (in fact the only one) classically
chaotic Hamiltonian systems whose quantization can be satisfactorally studied
mathematically. The techniques to do so are number theoretic and the results
are often quite surprizing.